High Altitude Hunter-Gatherer Adaptation in the Middle RockyMountains

This action permits Dr. Frison and his colleagues to continue archaeological excavation at the Helen Lookingbill archaeological site which is located at an altitude of 8600 feet in northwestern Wyoming. Previous work has demonstrated that the site contains stratified deposits which date from ca. 10,000 to 5,000 years ago. The rich and well-preserved faunal and lithic remains contain a record of human activity which spans the Paleoindian and Early Archaic periods. The team will continue careful excavation with exact plotting of individual pieces. Faunal and lithic remains will be analyzed and supplemented with a number of other studies. Additional work on site geology will provide clues to site formation processes. Such work on a broader regional level combined with pollen analysis should show how climate changed over time in this high altitude area and thus provide a backdrop for the understanding of human response. The region will also be surveyed for available stone sources which will be chemically characterized. Lithic materials from the site will be matched to these to give a picture of broader environment use. While many archaeological sites have been excavated in the adjacent Great Plains region, relatively little is known about how native American populations adapted to the harsher high altitude environments. From information to date it appears that a different cultural trajectory was followed in this latter region and that agriculture was not adopted. To understand human adaptation, it is necessary to excavate rich stratified sites with long cultural sequences and to date them accurately. The Helen Lookingbill site provides an excellent opportunity for this. This research is important for several reasons. It will increase our knowledge of a relatively unknown region of North America. It will shed light on how human societies at a simple level of technological organization adapt to a harsh and changing environment. It will also further development of excavation and recording techniques pioneered by Dr. Frison and his colleagues. These will have widespread archaeological applicability.